Improved Real-time Audio Interface for Human-Computer Interaction

This is the first year of a three-year continuing award to provide an improved human-machine audio interface. Array processing techniques and results from research in multiple microphone hearing aids will be extended to a multiple microphone acoustic beamformer for the human-machine interface. Further efforts will focus on efficient frequency domain implementations of the real-time processor, development of a robust hybrid fixed/adaptive array processor, and the incorporation of an acoustic echo-canceller to remove machine-generated noise. The results sought include an enhanced speech input for machines that will allow subsequent NLP algorithms to be more effective. In addition, the proposed implementation will not require special cables or positioning of the user.